MRI: Instrumentation for Intelligent Agent and Wireless Computing Research

EIA-0115885
Diane J. Cook
University of Texas at Arlington

MRI: Instrumentation for Intelligent Agent and Wireless Computing Research

This is a proposal for equipment acquisition under the Major Research Instrumentation (MRI) program to support research and student training on intelligent agents in a mobile environment. The Wireless Intelligent Simulator Environment being established will integrate software agents, human agents, and robot agents, so that physically distributed interacting agents can perform a variety of tasks cooperatively or competitively.